Multiuniversity I/U CRC for Membrane Applied Science and Technology at the University of Cincinnati

EEC-0086182
Krantz

This proposal will initiate a second site at the University of Cincinnati of the NSF I/UCRC for Membrane Applied Science and Technology (MAST) that was established at the University of Colorado in 1990. The MAST Center has focused on polymeric and inorganic membrane formation, catalytic membranes, and membrane fouling and characterization. The proposed MAST site at the University of Cincinnati will complement the Colorado site via thrusts in biomedical, pharmaceutical, food and beverage, paper industry, and personal home care product applications of membranes. The University of Cincinnati has commitments in the amount of $160,000 from four sponsors and has an expression of interest from 14 additional companies and government laboratories.